The Role of Differential Heating in Climate and Climate Variability Within Simulations of the NCAR CCM

The objective in this research project is to carry out detailed studies on the role of differential heating in climate and its variability using data from extended integrations of the NCAR Community Climate Model (DDC). The project will continue and extend on previous work which focussed on a detailed comparison of heating distributions prediction by an earlier version of the CCM (CCMOB) and the current version (CCM1). This is important project since it will help to quantify the improvements or deficiencies in the representation of differential heating in the new version of the CCM (CCM1). The results will provide a basis for developing future strategies for improving the model physics.